Hispanic Science News Service

This project will create the infrastructure to provide Hispanic media with an ongoing source of high-quality science news tailored to meet the needs and interests of Hispanics. The proposed Hispanic Science News Service website will be a downloadable internet resource site for Hispanic print, radio and internet editors, journalists and producers to access science stories, radio capsules and science information resources. This service would be promoted through partnerships with the National Association of Hispanic Publishers, the National Association of Hispanic Journalists, and The Hispanic Radio. Specific media deliverables will include: Exploracion, a weekly, Spanish-language newspaper column; La Ciencia en Breve: El Universo a tu Alcance (Science News Briefs); Exploracion, a daily science radio news capsule; and uploads of science content to the Univision.com website.